Gamma Ray Spectroscopy Equipment for Undergraduate Laboratories and Projects

Fairfield University will purchase a high-volume, high- resolution gamma-ray spectrometry system including a lithium drifted germanium detector, a 16,384 channel analyzer, associated electronics, shielding, and data analysis equipment. This equipment will be used to improve instruction in an advanced nuclear science laboratory, and for individual projects to be carried out by advanced undergraduate students. Many of the projects will involve the analysis of environmental samples using neutron activation analysis. Fairfield University will match the NSF grant with an equal amount of funds plus $300, and will provide a Microvax II computer for use with the system.